Operating Systems Laboratory Using Microcomputer Based Workstations

This project permits undergraduate students in this institution's computer science program to have a practical laboratory experience associated with the study of operating systems. The equipment that supports the project includes fifteen Zenith microcomputers running the MINIX operating sysytem. Using the source code of this operating system, students gain a hands-on experience in modifying the operating system. This award is being matched by an equal sum from the grantee.